US-China Workshop on Climate-Energy Nexus

0939920
Saylor

This award is for partial support of a U.S.-China Workshop on the Climate-Energy Nexus. The funds will be used primarily to support the travel and lodging of invited U.S. scientists to participate in the workshop, and also for publication costs. ORNL and the University of Tennessee Knoxville (UTK) will host the workshop, which is to be held in November 2009 near UTK. Leading researchers from China have agreed to participate in this workshop. The workshop is targeted to facilitate the development of a U.S.-China partnership by establishing joint research and education programs that will explore (a) critical research and collaborative opportunities in global climate change, bioenergy sustainability, ecosystem management, and technologies and strategies for mitigating carbon dioxide emissions, (b) mechanisms for engaging students and junior researchers in cross-cultural international research on global climate change and renewable energy, and (c) preparation of a joint white paper to help guide future efforts to mitigate climate change and develop bioenergy resources.